SBIR Phase II: An Innovative and Open Satellite-Based Internet of Things (IoT) Network

The proposed project centers around further development on the world's smallest 2-way communications satellites and associated ground hardware. Key contributions of this project include system and networking optimization and validation of the technology through end to end demonstrations. The system optimization component will involve the development of system-level models that capture the complex interaction of all elements, including dynamics, constraints, and objectives. The network optimization component will focus on the development of algorithms that enable seamless communications scheduling as the network scales to several thousand devices on the ground.

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project spans commercial, scientific and humanitarian applications by extending IoT (Internet of Things) connectivity to remote regions without cell coverage and where satellite data is prohibitively expensive for vital applications including agriculture, energy, shipping, and weather. The satellites and ground hardware being developed in this SBIR Phase II project have been driven towards miniaturization and power reduction to enable a broader range of customers to take advantage of the network by allowing easy integration into their devices and easy-to-install autonomous ground solutions. The unique launch economics afforded by the miniaturized satellites enable IoT (Internet of Things) sensing and data return at a cost 1/10th to 1/100th that of incumbent satellite data providers.